Mathematical Sciences: Combinatorists of New England One Day Meetings

This award supports a series of one day meetings on combinatorics and graph theory. The investigators will hold five meetings per year at Smith College. These meetings provide a seminar atmosphere for combinatorists and graph theorists in the northeastern part of the United States. This research is in the general area of Combinatorics. Combinatorics attempts to find efficient methods to study how discrete collections of objects can be arranged. The behavior of discrete systems is extremely important to modern communications. For example, the design of large networks, such as those occurring in telephone systems, and the design of algorithms in computer science deal with discrete sets of objects, and this makes use of combinatorial research. In addition, the type of enumerative information being sought in this project has been of use in the design of geometric algorithms for problems in robotics and motion planning.